Mathematical Sciences: A Research Group in Representation Theory

This award to Professors Lipsman, Herb, Kudla, and Rosenberg is made under the Mathematical Sciences Research Groups initiative. It will support postdoctoral associates, visitors, and graduate students in a series of collaborative projects in representation theory. Specific foci are representations of p- adic groups, symmetric spaces, and group C*-algebras. The research will deal with various aspects of the representation theory of Lie groups, which bear the name of the Norwegian mathematician Sophus Lie. One basic example of a Lie group is the group of rotations of a sphere, where the group operation consists of following one motion by another. Detailed information concerning this group is very helpful in solving mathematical or physical problems in which spherical symmetry is present. Other groups of motions capture other kinds of symmetry. A more algebraic (as opposed to geometric) source of examples of Lie groups comes from the multiplication of matrices. The group of all invertible real (or complex) matrices of a given size is a Lie group, as is just about any subgroup thereof that can be described in a natural manner. It is desirable to be able to go back and forth between the geometric and algebraic points of view, for instance to consider the numerous ways in which the rotation group of the sphere can be realized as a group of invertible matrices. This, roughly, is representation theory. Facts about the representations of a given group tend to store a lot of information very economically. Depending on where the group in question comes from, this information can impinge on almost any subject from number theory to mathematical physics.